Female Internal Migrants: Toward an Understanding of the Determinants and Consequences of Female Geographical Mobility in the U.S.

9321032 Enchautequi Despite the fact that women in the United States have migration rates comparable to those of men and that women comprise about half of the moves, there is a dearth of research on women migrants. The purpose of this research is to analyze female migration in the United States and to begin filling this gap in our understanding of the decision of women to migrate and the consequences for them of migration. This research will also contribute to the theory of household migration decision making by extending bargaining models to the case of family migration decision-making. To carry out this study, the investigator will use the Public Use Micro Files of the 1990 Census data and the Panel Study of Income Dynamics. From a policy point of view, results from this project will illuminate debates of gender inequality, affirmative action, and welfare migration. ***